Student Travel Support for the Symposium on Stabilization, Safety and Security (SSS 2012)

This project supports participation for 20 US-based students to the 14th International Symposium on Stabilization, Safety, and Security
(SSS 2012) to be held in Toronto, Canada during October 1–4, 2012. The purpose of the participation is to expose students to the theoretical modeling of important properties such as safety, robustness, stability, etc. in large systems.